Planning for Partnerships in Training: Systemic Reform in a Rural Setting

9554619 Smith Three school districts in rural, north-central Mississippi will cooperate in a twelve-month planning project to solidify/expand partnerships and implement a strategic planning process leading to a Local Systemic Change proposal for K-8 mathematics. The project expects to serve 140 K-8 mathematics teachers from Winona Public Schools, 75 from Montgomery County Schools, and approximately 80 other teachers of mathematics from a third neighboring district. The planning project emphasizes exemplary instructional materials, strong support for teachers, involvement of parents and the business community, and the creation of alternative schedules that provide weekly released half days for teacher professional development.